Research Experiences for Undergraduates in Chemistry at the University of Iowa

Professor Gary W. Small and other members of the Chemistry Department of the University of Iowa are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, eleven (11) undergraduate students will spend eight (8) weeks each summer actively engaged in a variety of research projects. Projects range from characterization of fungal metabolites and inhibitors of cholesterol esterase to improvement of instrumentation for trace metal or sugar detection. Students and faculty advisors will meet together weekly for informal seminars.